Second School on Non-Accelerator Particle Astrophysics; Trieste, Italy; June 3-14, 1991

The Second School on Non-Accelerator Particle Astrophysics will be held at the International Centre for Theoretical Physics (ICTP), Trieste, Italy from June 3-14, 1991. The School is directed by J. Stone, Boston University, USA., G. Giacomelli, University of Bologna, Italy, and E. Bellotti, University of Milano and Laboratorio Nazionale del Gran Sasso, Italy. The principle purpose of the school is to provide lectures on a number of theoretical and experimental topics in non-accelerator particle astrophysics as an educational forum for graduate students and young postdoctoral fellows pursuing research careers in this field. The School is partially sponsored by ICTP through UNESCO which supports the participation of students from developing nations and the Istituto Nazionale Fisica Nucleare (INFN) which supports the participation of Italian scientists. Funds from this project will support the participation of American graduate students and postdocs. An independent review panel of three persons with knowledge of the field will be assembled to select School applicants from the United States to be granted project funds to support their travel and subsistence expenses. Selection criteria will be based on the applicant's personal statement, letters of recommendation, and academic record and/or research publications.